RUI: High-Precision Atomic Structure Measurements and Atomic Tests of Electroweak Physics

This project consists of a set of experiments in atoms that will provide information critical to atomic-physics-based tests of parity nonconservation. Precise measurements of absorption and optical rotation of laser light by thallium atoms will be carried out to test the results of theoretical calculations. A new optical rotation scheme will also be explored as a possible means of enhancing the accuracy of PNC measurements. The program includes a strong undergraduate involvement at this undergraduate institution.